Moduli and Limits of Minimal Surfaces

Abstract

Award: DMS-0505557
Principal Investigator: Matthias Weber

This research project aims to combine two powerful new methods to
investigate moduli spaces of complete, properly embedded minimal
surfaces in euclidean space and their limits: Flat cone metrics are a
geometric way to represent Riemann surfaces together with a (possibly
multivalued) meromorphic 1-form, giving immediate information about
the periods of the form. In combination with Teichmuller theory, cone
metrics have been applied to existence and classification problems of
mimimal surfaces. Noded surfaces are natural limits of Riemann
surfaces under conformal pinching of curves. They have been used to
construct families of minimal surfaces that degenerate to a suitable
noded limit, using the implicit function theorem. We aim for a
description of the noded limits of minimal surfaces as geometric
limits of flat cone metrics. This adds a third type of limit to the
formerly considered geometric and conformal limits. The conformal
limits ignore the minimal surface information and consider only the
Riemann surface limit, while the geometric limit retain the minimal
surface nature but loose conformal and topological information by
rescaling the surfaces in space. The new cone metric limit will
incorporate both types of information. We hope that this description
will lead to new examples and classification results. This research
will be backed by numerical and graphical experiments based on a
minimal surface library currently under development.

Minimal surfaces are mathematical abstractions of 2-dimensional shapes
that arise at different scales in nature: We are all familiar with
soap film experiments, but such surfaces also have been observed at
the nano scale as interfaces between block copolymers. Their
mathematical properties are important for understanding the physical
nature of new fabrics. The physical goal to minimize surface tension
translates into a mathematical equation which has been of interest for
over 250 years: The minimal surface equation is just at the border
between what we understand by general theory and what we only can
analyze numerically. Any advance at this point will most likely have
its effects on other equations from mathematical physics and
engineering. The methods which are being used to investigate minimal
surfaces range from geometric analysis to numerical mathematics.
Recent theoretical advances from partial differential equations and
Teichmuller theory allow us to study 'extreme' minimal surfaces which
comparable to soap films that nearly break under deformations.
Understanding these extreme surfaces not only helps us to analyze the
examples we have by breaking them apart into simpler pieces but also
allows the construction of exciting new surfaces by putting suitable
pieces together. The computer experiments we conduct require elaborate
symbolic manipulations of the formulas involved, high-precision
numerical computations to get accurate 3-dimensional surface data, and
high performance computer graphics to visualize the actual surfaces.